Expanding and Sustaining Understanding Evolution

The University of California Museum of Paleontology (UCMP) will bring together an experienced group of evolution educators in order to inform the development and maintenance of an effective resource for improving evolution education at the college level. This effort falls under the umbrella of UCMP's highly successful Understanding Evolution (UE) project (http://evolution.berkeley.edu), which currently receives over one million page requests per month during the school year. UE was originally designed around the needs of the K-12 education community; however, increasingly, the site is being used by the undergraduate education community. UCMP intends to embark on an effort to enhance the utility of the UE site for that population, increase awareness of the site at the college level, and secure the project's future so that it can continue to serve K-16 teachers and students. To inform and guide these efforts, UCMP proposes to establish and convene a UE Advisory Board, which will be charged with helping to: (1) identify the characteristics and needs of college-level target learners and their instructors with respect to evolution, (2) articulate the recommended components for expanding the UE site to include an Undergraduate Lounge in which students and their instructors will be able to access a variety of resources for increasing understanding of evolution, (3) develop a strategic plan for increasing awareness of UE within the undergraduate education community, and (4) develop a strategic plan for maintenance and continued growth of the UE site.